REU: COLLABORATIVE RESEARCH: Metamorphic Evolution of the Nanga Parbat Massif: Metamorphism, Fluid Flow, and Granite Genesis

There is renewed interest in the importance of fluids in a variety of crustal processes such as granite genesis, metamorphism and heat and mass transport. This project will study relationships between granite magmatism, metamorphism and fluid flow using the very young Nanga Parbat-Haramosh Massif in the Pakistan Himalaya. This area records rapid uplift and denudation that appears near coevil with both granite formation and possible topographically driven fluid flaw. This hypothesis will be tested by an integrated petrologic, stable-isotopic, geochronologic and structural study of the Nanga Parbat-Haramosh area. Data obtained using these techniques are expected to provide constraints on the role of surface-driven fluids in the petrogenesis of granites and metamorphic rocks in the NW Himalaya and in compressional mountain belts in general.